PostDoctoral Research Fellowship

Dr. Medea Csoba DeHass will travel to Dartmouth College to meet with a prospective mentor, Dr. Sergei Kan. During the trip, Dr. Csoba DeHass will further discuss her proposed postdoctoral project on Sugpiaq ethnohistory with Dr. Kan, meet the researchers of the Institute of Arctic Studies at Dartmouth College, as well as discuss professional development and teaching opportunities during her proposed postdoctoral tenure.